Program Dependence Graphs and Dataflow Analysis

The goals of this project are to advance the state-of-the- art in language-based tools for software engineering. There are three related aspects to the research: (1) extending dependence-graph-based tools, (2) carrying out theoretical and practical studies of pointer analysis, and (3) quantifying trade-offs in dataflow analysis. The work builds on the prior research in two areas: the design and implementation of software engineering tools, and the design, implementation and evaluation of algorithms for dataflow analysis. The first part of the work includes the continuation of previous NSF-supported research extending underlying theory to permit graph-based tools to be used for a wider range of languages than is currently possible, and improving existing graph based tools. It also includes new directions: the design and implementation of new tools using a hybrid approach that combines text or syntax-based tools with semantic checks. The research on pointer analysis and dataflow analysis tradeoffs is complementary to the work on dependence graphs, since the results are expected to improve the graph-based tools. They are also expected to be useful to other researchers and practitioners concerned with applications that rely on the results of static analysis. ***